NSF Young Investigator

ATM-9357862 Trumbore This new National Science Foundation Young Investigator will use measurements of 14C in detrital, soil and dissolved organic matter to quantify the rates of carbon input, accumulation and turnover in terrestrial ecosystems. The understanding of ecosystem carbon cycling developed from and constrained by this data will be used to assess the effects of climate and land use changes on terrestrial carbon storage. ***